Effects of Flow Pulsations from Potential flow Interactions and Shock Waves on Film Cooling as Applied to Gas Turbine Engines.

Ligrani, Philip M. University of Utah CTS-9615196 ABSTRACT The principal investigator proposes an experimental study of the effects bulk flow pulsations have on film cooling. The work is relevant to heat transfer in gas turbine engines. A low speed wind tunnel will be used to generate a boundary-layer flow over a flat plate where film cooling could be introduced. Bulk flow pulsations will be generated by an array of rotating shutters located at the exit of the test section. Injectant distributions will be determined by flow visualization using a video camera and smoke or fog introduced into the flow stream. Heat transfer coefficients at the test surface will be deduced from thermocouple data and heat flux data. Hot wire anemometers, pressure probes, and temperature probes are available for obtaining flow information in the boundary layer.